Graduate Engineering Education at Michigan State University

The College of Engineering at Michigan State University project will develop funding, recruiting and retention programs for women and minorities seeking Ph.D. degrees. The College will continue to recruit these students to its nationally recognized research centers. NSF funds initially will be used for support of six students while the College develops recurring fellowship funding to provide long-term stability for the program. The efforts will emphasize recruitment of African Americans and women. The goal is to provide a four to five year funding profile for outstanding Ph.D. students having the monetary advantages of a fellowship while involving the student in regular research and teaching. The full fellowship during the first year permits the student flexibility while choosing a research advisor. During years 2 through 4, the student's primary support will be provided by research and teaching assistantships. This helps assure that the student contributes to research and teaching, thereby acting as a role model for other students. Dissertation fellowships are available for the final year to allow the student to complete papers and the dissertation. During the NSF award period, the NSF fellowship model would be used while Michigan State University develops continuing endowments to operate the proposed program.